Presidential Young Investigators Award: Exploratory Studiesin Heat and Mass Transfer

This research addresses a number of topics in the general area of heat and mass transfer. One effort considers the high heat fluxes and enhancement techniques to increase the maximum measured heat transfer. This problem will be pursued in relation to the boiling of impinging liquid jets, with the general intention of generating the greatest heat transfer rates possible. A key objective is to determine what, if any, maximum exists for the energy transfer by phase change. Another area for this year's work is an analysis of the effects of thermal radiation on multilayer Rayleigh-Benard instability. A continuing study concerns the effects of strongly stabilizing stratification on heat transfer in turbulent flow. Large density gradients suppress turbulent heat convection, in a process antithetical to natural convection. Studies of the coagulation of aerosols in turbulent flows will also be initiated, with the objective of obtaining reliable data on coagulation rates under given turbulent conditions. The high flux studies will influence the handling of heat at high power densities. If successful, they will provide the means of cooling such high flux systems as fusion reactors and high power laser mirrors. The stability studies are directly relevant to flat-plate solar collectors and will enable more efficient designs to be implemented. The stratified turbulence studies are of fundamental importance to the understanding of transport processes in the atmosphere and oceans, as well as to a number of engineering situations. Control of the stratification in a fluid (viz., the density gradient) enables control of heat losses. The aerosol studies address a fundamental issue in particle transport and have many potential applications to engineering.